Bilateral U.S.-England Workshop on Asymmetric Synthesis Pingree Park, Colorado, July 3-8, 1990

This award is being made by the Chemistry Division to enable the participation of 13 younger U.S. scientists in the Bilateral NSF- SERC Joint Workshop on Asymmetric Synthesis which will be held at the Pingree Park facility of Colorado State University, Pingree Park, Colorado, July 3-8, 1990. They will participate in the Workshop with 12 young scientists from Great Britain. The purposes of the workshop are (1) to expose them to the broader community of international scholarship, and (2) to build long-term bridges for productive international researh collaboration and knowledge exchange. Asymmetric synthesis has become an area of intensive research interest and significance in chemistry. The strict demands placed on the chemical and optical purity of new marketable drugs makes the discovery and implementation of new and efficient asymmetric chemical constructions a primary concern in chemistry.